Interdisciplinary Overview Symposium on Insect Phermone Research, April 27--May 1, 1988, Sarasota, Florida

This is a conference to be held during the annual meeting of the Association for Chemoreception Sciences. The topic of the conference is insect pheromone research, an area that is important from the standpoint of insect control as well as having considerable impact on our understanding of chemical communication. The interaction of researchers working with insect pheromones and those in other areas of taste and smell has not been as extensive as might be hoped, and among the benefits of this conference is that it will bring a group of pheromone researchers to the meeting of the chemical senses scientists and will do so in a forum that will not be in a time slot competing with any other activity of the meeting.